Socio-Cultural Dimensions of Neurofibromatosis

This project will study the life experiences, coping patterns and social supports of individuals with neurofibromatosis (NF), a common chronic and progressive neurological disorder. The individual with NF faces a lifetime of dealing with a disfiguring and disabling chronic disease whose prognosis is unpredictable. The project will study the local and national NF support groups, and will document the ways in which the media-created image of "the elephant man" as the personification of the dread and stigmatized disease has affected the adaptation of individuals and their families to their condition. The research will use indepth interviews and observation of individuals and families and NF support groups. This research is significant because it will show how individuals and families adapt to (organize, amd cope with) the complexities of genetic and chronic illness, stigma and disability. This research will be shed light on stigma as a social condition, and on the role of support groups in dealing with dramatic, stigmatized and often unpredictable health conditions.